A Participatory Model for Integrating Cognitive Research into Exhibits for Children

The Museum of Science (Boston) Discovery Center is collaborating with the MIT Early Childhood Cognition Lab, along with four partner museums around the country (Boston Children's Museum, Indianapolis Children's Museum, Children's Museum of Richmond, Maryland Science Center), a set of science advisors, and evaluator, Barbara Soren. The purpose of the project is to develop and evaluate a variety of methods that will engage adults in activities that help the adults understand and apply current cognitive science research on children's exploratory play and causal reasoning development. The primary audience is adults with young children; secondary audiences are informal science education professionals who operate early childhood exhibit areas and cognitive science researchers.